Micro-granular Mechanics for Deformation and Failure of Granular Materials

***
9813299
Chang
Previous studies have shown that the usual concept of strain (first
gradient of displacement) cannot adequately describe the near- and
post-failure behavior of granular material under large deviatoric loading
condition. In this research, the concept of using additional kinematic
descriptors other than the usual concept of strain will be explored. The
overall objective of the work is to develop micro-granular mechanical
theories using new kinematic descriptors so that the theories are
applicable to the entire range of stress-deformation behavior.

The approach employed will be based on a micro-macro approach in which the
behavior of an assembly is linked to the properties of particles.
Experimental data and computer simulation will form an integral part in the
development of the theory. The developed micro-granular mechanical theory
will be implemented to a finite element environment. The model will be
validated by comparing measured and predicted behavior of granular
materials under different loading conditions.

The result of this research will provide insight into the theoretical
framework of material localization and bifurcation in continuum mechanics.
The intrinsic length of material, which plays a major role in localized
failure zones, will be directly related to the micro-structure. This
unique feature significantly distinguishes this theory from
phenomenologically based models. The derived theories are expected to be
extremely valuable not only to the field of micro-granular mechanics but
also to the field of finite element methods in the analysis of shear
problems.
***